Meeting Support for a Symposium with Tributes to Verner E. Suomi; Madison, Wisconsin; June 27-July 2, 1999

This award provides partial support for the Verner E. Suomi Symposium, which will be held in conjunction with the 10th AMS Conference on Atmospheric Radiation, June 27 - July 2, 1999 in Madison, Wisconsin. The symposium honors the late Professor Suomi, a pioneer in many areas of earth and space science and particularly in remote sensing from satellites. The symposium will review the current state of the art and identify future challenges in remote sensing. Plans include publishing the proceeding of the conference and symposium in the Bulletin of the American Meteorological Society. It is hoped that the symposium will serve as the catalyst for innovative ideas, much as Professor Suomi was a catalyst for the science.

NSF is one of several federal agencies providing support for this symposium.